U.S.-France Cooperative Research: Theoretical Studies and Implementation of On-Line Arithmetic

This two-year award supports U.S.-France cooperative research in massively parallel computer systems between Milos Ercegovac of the University of California, Los Angeles (UCLA), and Jean Michel Muller of the Ecole Normale Superieure, Lyon, France. The research focuses on theory, design and applications of an on- line arithmetic approach with the ultimate goal of implementing a class of fast and cost-effective algorithms suitable for specific parallel computer systems. The UCLA group brings to this collaboration their expertise on theory and design of an on-line arithmetic approach and implementation of arithmetic algorithms and structures in field programmable arrays. This is complemented by the French investigator's extensive experience in custom VLSI (Very Large Scale Integration) and its application to massively parallel computers. Fast implementations for basic arithmetic operations have been of major interest since the development of the first generation of computers. Most current designs have been used in general- purpose and multiple processor systems, so that solutions that are suitable for more specialized situations have not been fully explored. The proposed cooperative research explores possible solutions and will enhance the development of specialized systems which require both high speed and the capability for executing algorithms composed of a large number of arithmetic operations.